Advanced Mechanical Testing of MEMS Materials

Microelectromechanical systems (MEMS) are tiny pressure transducers,
accelerometers, etc. having features as small as 1 micrometer and fabricated
from vapor-deposited polycrystalline silicon and similar materials. The first
objective of this research is to develop techniques and procedures for
tensile testing of these materials in order to determine whether the size of the
specimen and the complexity of the stress affect their properties. The
second objective is to develop new test methods to cycle tiny specimens in
tension and measure their response to cyclic loading. Material properties of these new structural materials are required for intelligent design and life prediction of novel microdevices.***